2026 NSF SBE's Collaboratory to Advance Mathematics Education and Learning (CAMEL) for K-12: Phase II Hybrid Workshop

This project aims to build capacity and collaboration across researchers, education practitioners, and data scientists to solve important challenges in math education and learning. The project supports a workshop to generate ideas and plans for building an ecosystem through the construct of a “collaboratory”. The goals of the collaboratory are to make training and shared resources available, to foster and sustain synergistic collaboration among researchers, educational practitioners and data scientists, and to track outcomes related to supported projects.

The workshop is open to Phase I awardees of NSF 26-501: Collaboratory to Advance Mathematics Education and Learning (CAMEL) as part of Phase II. The planned format of the workshop is an Ideas Lab which follows the Creative Problem Solving methodology, incorporating creativity, critical thinking, and metacognitive skills to facilitate problem solving and idea generation. Potential objectives to be pursued at the workshop include: 1) identification of shared problems and potential solutions; 2) sustaining collaborations across research, practice, and data science; 3) developing standards of practice and supporting foundational training in data literacy, data management, data sharing, data privacy, and use of data; 4) facilitating greater use and awareness of data types that could be harnessed for rich contextual framing of studies in learning, 5) development of new analytical tools; and 6) facilitating teacher training and translational resources for the classroom. The workshop lays the foundation for the CAMEL Phase II goal of building an integrated ecosystem (i.e., the collaboratory) to provide two-way support for cross-disciplinary researchers (e.g. in science of learning, data science, and AI) and cross-sector professionals (technologists, data and education practitioners, administrators and policy-makers) to collaborate to address gaps and challenges in math learning and education.